Special Meeting at Copper Mountain Conference

This award provides support for a series of three meetings on current topics in computational mathematics, held annually at Copper Mountain, Colorado. The subject of these meetings alternates between Multigrid Methods (in odd-numbered years) and Iterative Methods (in even-numbered years). The conference series encourages and financially supports participation by students and members of groups underrepresented in the mathematical sciences.

In addition to contributed talks of approximately one half hour each, conference activities feature a student paper competition and evening sessions devoted to panel discussions, workshops, and an informal research forum. The meetings have an egalitarian style with no invited talks, and student presentations are put on equal footing with all others. Additional details can be found at the conference web site

http://amath.colorado.edu/faculty/copper/